Chapman Conference on Shallow Level Processes in Ocean Island Magmatism: Distinguishing Mantle and Crustal Signatures

9633300 Spilhaus This award will help four graduate students attend an AGU Chapman Conference to be held next November in the Canary Islands. A number of recent studies have shown that crustal modification of ocean island basalts may be quite common. the question that then arises is whether crustal contamination is simply noise affecting otherwise robust mantle signatures, or whether the characteristics currently attributed to mantle reservoirs reflect some combination of crustal and mantle input. The Conference will address this question from a number of perspectives. Four broad discussion subjects have been proposed, which will hopefully correspond to four days of focus at the meeting. They are: 1. The state of the science in chemical geodynamics, as determined from studies of oceanic magmas. 2. The pressure-temperature-time constraints on ocean island magmatism. 3. The physical process of magma-crust interaction. 4. The geochemistry of magma-crust interaction.